A Prestressed Kevlar/E-Glass Structural System

The objective is to develop a lightweight, adjustable, maintenance-free as well as economical structural system for use in the construction industry. To be studied is a prestressed structural system of kevlar 49 and E-glass polyester resin, which have excellent corrosion resistance as well as being lightweight. The objective of the research will focus on the time-dependent characteristics of the beam elements of the proposed system and the feasibility of developing a computer model which can predict the behavior of these elements. The Phase I effort will involve an investigation into 3 major areas; materials, geometry, and construction. The time-dependent studies will involve full-scale testing of the proposed beam elements at the Center for Advanced Technology for Large Structural Systems (ATLSS) under Dr. John W. Fisher, Director, at Lehigh University. Phase II will involve full-scale dynamic tests at the ATLASS Center.